Analytical and Computational Methods for the Atmosphere and the Ocean, and for Classical Fluid Mechanics

Some fundamental problems of meteorology, oceanography, and fluid mechanics are addressed by a combination of mathematical tools in pursuit, in the long term, of improving the numerical simulation of these phenomena on computers. This proposal also has a strong interdisciplinary educational component. For problems in the atmospheric and ocean sciences, fundamentally new perspectives are proposed that affect the numerical predictions substantially, such as the boundary conditions and the treatment of the topography in the calculations. More fundamental concepts are considered in fluid mechanics, which affect our vision of turbulence, a problem of industrial importance.